BE/CNH: Systems Approach to Maintaining Natural Capital in Rapidly Developing Watersheds

Land-use continues to change throughout the world as economies and populations grow. Land-use change often has large adverse impacts on natural capital and the ecosystem services that this capital provides. The long-term goals of this project are 1) to improve understanding and prediction of land-use change and its effects on biocomplexity in watersheds, and 2) to improve the capacity of decision makers to use this information in their efforts to foster both economic well being and preservation of natural capital. In this incubation activity, the investigators will work at the watershed scale toward integrated biophysical/economic systems models that respond to thresholds and episodic events. This is a significant departure from the approach taken by much preceding work, in which information has been analyzed using regression relationships based on continuous functions that cannot handle threshold and episodic events. The investigators plan to hold three workshops for team development, assessment of the state of knowledge, and the articulation of the conceptual framework and methods for a larger and more in-depth study.